CPS: Breakthrough: Secure Interactions with Internet of Things

The objective of this research is to (1) gain insights into the challenges of securing interactions in Internet of Things (IoT)deployments, (2) develop a practical framework that mitigates security and privacy threats to IoT interactions, and (3) validate the proposed framework in a medium-scale IoT testbed and through user studies. The emerging IoT computing paradigm promises novel applications in almost all sectors by enabling interactions between users, sensors, and actuators. These interactions can take the form of device-to-device (e.g., Bluetooth Low Energy (BLE)) or human-to-device (e.g., voice control). By exploiting vulnerabilities in these interaction surfaces, an adversary can gain unauthorized access to the IoT, which enables tracking, profiling and posing harm to the user. With the thousands of diverse IoT manufacturers, developers, and devices, it is very challenging, if not impossible, to ensure all devices are properly securedat production and kept up-to-date after production. IoT users and administrators have to place their trust in a set of devices, with the least secure device breaking the security chain.

By shifting the trust base from the various manufacturers and developers to a single framework under the user's control, deploying IoT devices will be more feasible and less vulnerable. The proposed framework will help advance the national health, prosperity and welfare, and also secure the national defense. Securing IoT interface surfaces as case studies will be integrated in graduate-level courses, and used to train (especially underrepresented and female) students with interdisciplinary topics that require a balanced mix of theory and practice, thus developing human resources in the nationally needed areas.The proposed research will also significantly advance the understanding of the challenges to secure IoT interaction surfaces in practice, thus promoting the progress of science. This project will establish a general direction to secure interactions in the current and future IoT deployments. It will offer an additional protection layer in the cases where security cannot be properly built-in and maintained.